The Scholarship Program for Advancement in Computer Science, Mathematics, and Engineering

This program provides scholarships for deserving and financially needy students in computer science, mathematics, and engineering curricula. Scholarship recipients experience research-based teaching and learning and have access to mentoring and development activities. Partnerships with external agencies provide enrichment activities and internship opportunities for scholarship holders.